Symposium on "Intermetallic-Based Alloys - From Fundamentals to Applications" at the Fall Materials Research Society Meeting

Intermetallic compounds are an integral part of materials design for structural and functional applications and, thus, understanding their behavior is critical to improved performance. Extensive research has been underway to understand the fundamental aspects of intermetallics and the knowledge base is continuously evolving. Nevertheless, significant knowledge gaps exist in the fundamental science of intermetallics, as well as in processing and scale-up for eventual application. This award supports a symposium on fundamental understanding of the processing, microstructure, and properties of these materials at the Materials Research Society (MRS) Fall Meeting in Boston, Massachusetts, November 27-December 2, 2016. This symposium series was started in 1984 and is one of the longest running symposia in MRS history.

This award will enable the attendance at the symposium of graduate students, post-doctoral researchers, early career faculty and researchers from underrepresented groups. Support for students and early career researchers for travel and registration at the MRS meeting is a critical part of broadening and educating the field of researchers, as well as advancing knowledge and information exchange about this important class of materials.